Reactive Atomic and Molecular Ion-Surface Collisions

It is proposed to study atomic and molecular ion-solid interactions at energies of several electron volts and higher (KeV) covering the range between thermal gas-surface interactions and high energy bulk implantation and sputtering.